POWRE: Effects of Systematic Data Error on Inductive Machine Learning Algorithms

EIA-9806218
Danyluk, Andrea
Williams College

POWRE/CISE: Effects of Systematic Data Error on Inductive Machine Learning Algorithms

Proposed research is a change of direction for the PI, and provides her with an opportunity to switch from applied research to theoretical aspects of machine learning. The objective is to study the effects of systematic data error on inductive machine learning algorithms. The work proposed will begin to characterize the effects of systematic error both analytically and empirically. It will incorporate development of a model for analyzing worst case effects of data error on decision tree learners. One of the objectives of the study is to increase the involvement of undergraduates in research and provide them with an opportunity to obtain active research experience.